Engineering Research Equipment Grant: A Proposal for Computer Vision Research Instrumentation

Computer Vision Research Instrumentation will be provided for researchers at the University of Florida for research in the Department of Computer and Information Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the areas of scene information, algorithm development for spatial reasoning, and algorithm development for fast access and retrieval of multidimensional, multisensory data.